RUI: The Flash-Quench Technique as a New Method for Inducing DNA-Protein Crosslinks

Stemp
MCB 9817338
1. Technical: A new method is proposed for the generation of covalent bonds
between DNA and protein (DNA-protein crosslinks). These covalent adducts
are a potentially lethal form of DNA damage, and can be formed from attack
of proteins on oxidatively damaged DNA. Using a photochemical method called
the flash-quench technique, a powerful ground-state oxidant will be
prepared on the DNA by oxidative quenching of a photoexcited intercalator.
The oxidized intercalator selectively oxidizes guanine bases. Given that
DNA is typically associated with proteins in the cell, and that proteins
have many nucleophilic sidechains, one likely outcome following guanine
oxidation is the formation of DNA-protein crosslinks. Current experimental
approaches to DNA-protein crosslinking reactions produce either a myriad of
nonspecifically crosslinked products or specific products that are not of
physiological relevance. In contrast, the flash-quench technique offers a
way to produce specific crosslinks between DNA and protein that may have
physiological relevance. The specific aims of this study are to i) define
and optimize the parameters important for generating nonspecific
DNA-protein adducts by the flash-quench technique and ii) create specific
DNA-protein crosslinks to obtain one adduct in high yield for chemical
characterization. The successful establishment of this approach would help
to elucidate one consequence of oxidative damage to DNA at the molecular
level. This research experience will be shared with the students.

2. Non-technical: A new method is proposed for the formation of strong
bonds between DNA and protein, known as DNA-protein crosslinks. Oxidative
damage to DNA is thought to play a role in many diseases, and many people
take antioxidants to counteract the free radicals that can cause such
damage. Free radicals are electron-deficient species that can oxidize
(take electrons from) DNA, leaving an "electron hole" on the DNA. It is
thought that this "electron hole" can be filled by amino acids of
proteins that are electron-rich, resulting in a bond between DNA and
protein. Because DNA must be free to interact with many different proteins
in the body, the formation of a permanent bond with one given protein could
be lethal. Here, the flash-quench technique is used to make electron holes
on DNA. In this method, a "flash" of blue light excites a small molecule
nestled between the DNA bases, and this excited molecule is then "quenched"
by giving an electron to another small molecule nearby the DNA. The
quenched molecule then behaves like a free radical and oxidizes the DNA,
which in turn leads to DNA-protein crosslinks. The advantage of the
flash-quench technique is that it only oxidizes one type of group on the
DNA, the guanine base, whereas most other approaches heretofore cause
indiscriminate damage all over the DNA molecule. This selectivity should
allow for the detailed study of DNA-protein crosslinking reactions with
guanine, and should elucidate one consequence of oxidative damage to DNA at
the molecular level. This research experience will be shared with the
students.